Conference: Inaugural Berkeley-Stanford Workshop on Veridical Data Science

The Inaugural Berkeley-Stanford Workshop on Veridical Data Science will be held on Friday
May 31, 2024, at BIDS on UC Berkeley campus. The organizing committee consists of
Bin Yu (UC Berkeley, co-chair), Russ Poldrack (Stanford, co-chair), Maya Mathur
(Stanford), and Tiffany Tang (University of Michigan). This conference is jointly hosted
by the Berkeley Institute of Data Science (BIDS) and the Department of Statistics, parts of
UC Berkeley's College of Computing, Data Science, and Society (CDSS) and Stanford
Data Science Center for Open and Reproducible Science (SDS-CORES).

Data science is playing a ubiquitous role in science, society, and beyond, underscoring
the urgent need to ensure the trustworthiness and safety of data science including
machine learning. The data science life cycle (DSLC) is often a complex and multi-step
process, including domain problem formulation, data collection and cleaning, data
visualization, model/algorithm development, post-hoc visualization, interpretation,
vetting and communication. In every step of a DSLC, human judgment calls are made
and often unaccounted for in the traditional uncertainty quantification. Veridical data
science (VDS) is the practice of rigorously conducting data analysis while making
human judgment calls and using domain knowledge to extract and communicate useful,
trustworthy information from data to solve a real-world domain problem. The
Predictability-Computability-Stability (PCS) framework and documentation have been
developed towards veridical data science. This conference is focused on veridical
(truthful) data science (VDS) for responsible data analysis and decision-making. There
will be 4 keynote speakers and 9 invited speakers. We expect around 100–150
attendees from both academia and industry. 8-10 lightning talk speakers will be
selected based on submitted abstracts. This workshop intends to build a community of
veridical data science researchers. https://na.eventscloud.com/website/69057